U.S.-France Cooperative Research: Cycles, Paths, and Communication Networks

This three-year award supports U.S.-France cooperative research in applied mathematics between two research groups: Dr. Ralph Faudree and others at Memphis State University and Hao Li and others at the Laboratory for Information Research, University of Paris (South). The investigators will examine several problems related to graph theory with particular emphasis on applications to computer networks and fault tolerance. They will focus on problems related to paths and cycles of special families of graphs and plan to apply paths, connectivity and diameter problems to communication networks. Algorithms will be developed to address some of the applied problems. The project brings together two research groups with overlapping interests and expertise. It will benefit from combining diverse approaches to these problems and their mutual experience in both graph theory and information science. The research has important applications to a number of complex areas in parallel computing, such as mapping programs to parallel architectures, and code optimization.